A Supplemental Contribution to the 1990 Gordon Research Conference on Tribology to be held at Holderness, Plymouth, New Hampshire, June 25-29, 1990

Support is provided to enable graduate students and researchers without travel support to attend the bi-annual Gordon Research Conference on Tribology. The topic of the conference is "Recent Advances in Microscopic and Macroscopic Tribology". The conference attempts to bring together, in an informal environment, the two major sub-cultures of the tribology community: researchers who approach the subject from the traditional macroscopic point of view and researchers who employ recently developed microscopic and atomic-level techniques of observation and modeling.